Nucleon Structure Through Electron and Photon Scattering

The goal of this research is to test the validity of
accepted theories of the strong force, using experiments
that push the limits of current knowledge. While the theories
are believed to be the correct underlying theory of matter,
precision experiments described in this proposal are designed
to constrain the theoretical predictions. In particular, the
so-called Standard Model provides the unification of
electromagnetic and "weak" forces of nature, and one
experiment is designed to measure the weak charge of the
proton at a precision of a few percent. This experiment,
called Q-weak, will be performed at Jefferson Lab and
will clearly identify any necessary corrections to the Standard
Model (or solidly confim it). In another experiment, also at
Jefferson Lab, we are investigating a new kind of particle
(sometimes called an "exotic" baryon) resonance that was
predicted by group theory and global symmetries of the
strong interaction. If this particle exists, then it is the first
of its kind, called the pentaquark, and represents a marriage
between the known 3-quark objects (like the proton) and
quark-antiquark particles.

Additional experiments are being carried out at the laser
electron gamma source (LEGS) facility at Brookhaven
National Lab. These experiments are also designed to
test well-known principles of physics (gauge theories)
that connects the "spin" of the proton to measurements of
all scattered particles made from a photon beam hitting
a proton or a neutron. This experiment requires the
development of a novel solid HD (hydrogen deuteride)
target that can be polarized to a high degree. The goal
is to learn more about what causes the "spin" structure
of the proton or neutron.